Effects of Spatiotemporal Pooling on Perceived Motion

9514522 LINDSEY Objects moving within a human's field of view stimulate a good many neurons, which differ with regard to the region of the field they represent and with regard to the local characteristics of a moving object, such as color, orientation, speed, and depth, that each signals. Human perception of objects in motion suggests that the human visual system somehow unifies the responses of these many neurons into a single perceptual whole, using a process known as pooling. This process is spatiotemporal in nature, because it extends across neurons responding, as moving objects are observed, to different properties of the object and to different regions of visual space, as well as across responses that occur in the recent past as well as in the present. This research is concerned with spatiotemporal pooling by the human visual system and is motivated by a three-stage, quantitative model of motion perception. The stages of the model are Detection, Integration, and Decision. The first two stages simulate the acquisition and collation of motion information from low-level motion sensors analogous to those thought to exist in humans. The Decision stage simulates a neural network designed to compute an appropriate velocity from the pooled responses of the low-level motion sensors. The model is designed to resolve not only the motion of single objects moving against a background, but also to resolve two overlapping transparent objects moving at different velocities relative to one another. This research will involve four series of psychophysical experiments on human subjects. The research will flesh out various functional aspects of the pooling process in humans and of the computer simulation of these processes. The first series will determine the spatiotemporal ranges over which pooling occurs and will determine whether motion pooling is "hard-wired" or whether the visual system has the capacity to adjust its pooling parameters flexibly when additio nal image information is present in the visual scene. The second series of experiments will determine how motion information from many different potential sources, e.g., spatial frequency, orientation, color, disparity, is pooled and represented in velocity space. The third and fourth series of experiments will determine how finely or coarsely image velocity information is represented in velocity space and will determine the robustness of object velocity resolution in the presence of noise. This research will enhance our current understanding of the processes underlying motion perception in humans. The research may be of ultimate utility in robotics, in the design and construction of visual prosthetics, and in the clinical assessment of visual dysfunction. ***